Scientific Computing Research Environments for the Mathematical Sciences (SCREMS)

The Department of Statistics and Actuarial Science at the
University of Iowa will purchase computer equipment (a Microway
Beowulf cluster for intensive computation as well as 3 workstations
for individual faculty at a total cost of $88411) which will be dedicated
to the support of research in computational, applied, and theoretical
statistics. The equipment will be used for several research projects,
including in particular:

1. The extension, implementation and application of
posterior simulators (John Geweke)
2. Markov chain Monte Carlo algorithms and convergence
assessment in Bayesian hierarchical models with application to
spatial and temporal modeling (Mary Kathryn Cowles)
3. Analysis of unreplicated experiments (Russell Lenth)
4. On Inference in Continuous-Time Models
with Applications to Finance (Osnat Stramer)
5. Analysis of surface roughness data and studying the properties
of fractal dimension estimator in a class of stationary
non-Gaussian random fields (Grace Chan)